REU: Research Experience for Undergraduates

This award provides funds for a Research Experiences for Undergraduates Site in the Department of Biological Sciences at Oklahoma State University. The program will include ten participant projects, all concerned with improvement of green plant performance through enhancement of growth conditions. The enhancement methods to be studied will involve a variety of approaches from the field of plant physiology and structure, plant pathology, ecology of research, biochemistry. A brief orientation will be concerned with philosophy of research, plant productivity, growth limiting conditions and how they may be circumvented, literature survey, report writing and presentations of results. Each participant works with a research advisor. Project planning and reading of background material occur before the participants arrive. Group progress meetings are held throughout the program focusing on problem areas and successes. Participants visit each other's labs, discuss their projects and work with research assistants, graduate students, and post doctoral personnel as well as the advisor. Post program follow- up efforts will include presentation of results to biology and science clubs in participants' home schools, state collegiate academies of science and publication in appropriate journals.